Development of Eddy Current Spectroscopy: A Contactless Technique to Characterize Semiconductors

9625905 Chan This award provides support for development of a novel method of eddy cement spectroscopy. The sheet resistance of a film is the product of the sheet carrier density and the carrier mobility , each of physical and technological interest. The standard eddy current measurement can determine the sheet resistance of a conducting film without contacting it, but this measurement does not give information about the carrier density or carrier mobility separately. Buy taking this technique to a regime of microscopic sampling area, the sheet resistance will fluctuate because of carrier Brownian motion in and out of the sampling area. The carrier density and the carrier mobility can be separately determined by analyzing the amplitude and the time dependence of these fluctuations. A magnetic field is not needed for the measurement, so carriers confined to quantum wires can still be measured. The eddy current spectroscopy (ECS) technique requires a microfabricated coil to be placed near the sample. A method where the coil and sample together act as an amplitude modulator that impresses the resistance fluctuations onto a radio frequency carrier is described. The amplitude modulated radio frequency signal can then be analyzed by a spectrum analyzer. %%% The ECS technique has many features that can significantly advance electrical characterization of electronic materials in either a research or a manufacturing environment. These features include: It is a noncontact and a nondestructive technique, so sample preparations is unnecessary; it only requires that a coil be near the sample, leaving room for other probes, electrical properties then can be spatially correlated with other properties of the sample; it intrinsically measures a small area, so high resolution mobility and carrier density maps can be obtained; it is sensitive to the microstructure of the sample, and can help elucidate microstructures; and it does not require any bulky component, such as a large magnet, and can potentially be desktop size. ***